Research Initiation Grant: Exploring the Disconnect between Self Determination Theory and the Engineering Classroom Environment

The proposed work is an empirical investigation to explore the effectiveness of the Self-
Determination Theory (SDT) in the context of undergraduate engineering education. It is
hypothesized that there is a disconnect between the principles outlined in SDT and the actual
classroom environment, thus creating a barrier to intrinsic motivation needed for student learning.
Accordingly, the primary objectives will be to (i) assess the Faculty knowledge of SDT; (ii) develop
a measurement framework to assess the classroom environment as it relates to SDT; and (iii)
determine the association among Faculty knowledge of SDT, student motivation, learning
environment, and student learning.

The research design and measurement framework are developed through a meaningful collaboration
between the researchers from Engineering, Psychology, and Education. This takes advantage of
current standards and techniques employed in the field of Social-Cognitive Psychology. The
research questions answered through this project are valuable in developing reform strategies for
engineering education, and can also serve as a future model for other STEM disciplines. The
broader objectives of the project support the NSF’s strategic goals of transforming the frontiers by
preparing a better engineering workforce with new capabilities and expertise. Also the NSF goal of
innovating for society is achieved by producing research-based results that may be useful in
informing educational policy and practices.